Stress and Fatigue Analysis of Railroad Cars Utilizing the Finite Element Method and Vehicle Dynamic Response Tech- niques

Railroad cars are large, heavy structures which are generally designed with very large safety factors. It is difficult, using classical analysis techniques, to obtain accurate estimates of the loads experienced by the car and of the stress levels and fatigue life of the various components of the car. However, it is now possible to overcome these difficulties with the use of modern computer-aided engineering techniques such as finite element analysis and rigid body-based vehicle dynamic response analysis. If the loads and stress levels are more accurately known, it would be possible to design railroad cars with lower safety factors. This would result in lighter weight cars which are more economical to build and operate. This research addresses the issues of (1) obtaining the loads on the railcar body from the dynamic response of the vehicle assembly to the random irregularities in the track, (2) developing finite element analysis techniques to accurately model and analyze the railroad car, incorporating the dynamic loads on the car, and (3) developing methods to utilize the results of the finite element analysis to more accurately estimate the fatigue life of the railroad car.